Dissertation Research: Chemical Ecology in the Chiroptera

Kunz 9801137 Bats are highly social mammals, and for species with complex social structures, individual recognition is important. Among bats, a combination of visual, auditory, tactile and olfactory cues are used to assess individuals, roost sites, and colony members. While auditory and visual systems have been well studied, interestingly the olfactory system of mammals has received little attention. The purpose of the present study is to establish the importance of olfactory communication in bats, and to apply this knowledge for conservation and pest management. Behavioral tests will identify the role of olfaction in kin recognition in little brown bats (Myotis lucifugus) and big brown bats (Eptesicus fuscus). Females often roost in large colonies in which they must identify their own pups. Y-maze test will present females with choices between kin and foreign scents to establish whether olfaction plays a role in mother-pup recognition in these species. Behavioral assays will set the stage for the investigation of the role of olfaction in the social interactions of bats. Chemical analysis of odors from selected bats will be collected to assess whether odor chemistry mirrors the evolutionary history among related species and will be used to test the potential use of human olfaction as a probe into chemical communication in bats. Constituents of odors will be analyzed using gas chromatograpahy olfactometry (GCO). GCO coupled with behavioral tests is expected to emerge as an important tool for investigating mammalian behavioral ecology and provide important avenues for research into the attraction of bats which are economically important as pollinators and predators of insect pests.